VI Regional Conference on Mathematical Physics, Islamabad, Pakistan, February 5-11, 1994

9321168 Sezgin Description: this project supports participation by U.S. scientists in the "VIth Regional Conference on Mathematical Physics", planned for February 5th through 11th, 1994, in Islamabad, Pakistan. The conference will highlight the latest developments in the field of high energy physics and cosmology. The emphasis will be on the discussion of particle phenomenology, QCD light cone methods, neutrino physics and weak interactions. In the more mathematical section, the conference will focus on formal aspects of field theory: superstrings, conformal field theory, finite temperature field theory and its implications. A third session will be devoted to general relativity and cosmology. Scope: This meeting is expected to be attended by scientists and young physicists from South Asia, and Central Asia, as well as by speakers from the U.S., Canada, Europe, including from Turkey. The aim of the conference is to promote research in fundamental physics and mathematical physics in the countries of South and Central Asia, and to create linkages between young scientists in these regions and U.S. scientists. This fits well with the objectives of the Division of International Programs. ***